CAREER: Understanding the history of grasslands in the southern Appalachians

Grasslands are the most endangered ecosystems in the southeastern US, having lost more than 90 percent of their area in the last several hundred years. To effectively conserve and restore these ecologically important habitats, it is critical to understand their past extent and location. Lake sediments can provide insight into past vegetation and landscapes but are unfortunately limited in the Appalachian Mountains. Fortunately, bat guano deposits – often accumulating over thousands of years – are relatively abundant in the Valley and Ridge Province of Appalachia and contain a wealth of information about the past. Through the collection and analysis of multiple proxies in a network of guano cores, the primary goal of this project is to quantify the relative proportions of grassland versus forest communities in the southern Appalachians over the past ~21,000 years and determine the factors responsible for past grassland maintenance. The results of this study will inform where to conserve and restore and how to manage southeastern grasslands today, actions that promote national health and prosperity.

This project will (1) quantify the relative proportions of C3 versus C4 vegetation in the southern Appalachians; (2) evaluate the relationship between past grassland habitats, fire, and climate; (3) identify drivers of past grassland dynamics; and (4) model the extent and location of grassland vegetation in the southern Appalachians over the past ~21,000 years. Isotopic records will be generated from a network of robustly radiocarbon dated bat guano cores to gain information about past vegetation and precipitation. Charcoal serves as a proxy for fire and together with pollen can help clarify the interplay between fire and vegetation change. Through the creation of a Virginia land stewards landscape history research network, this project will enable land stewards to uncover the last ~2000 years of vegetative history on their properties using soil cores. Undergraduate students in an intensive first-year geoscience major’s course will assist in analyzing the soil cores as part of a course-based undergraduate research experience, thereby helping to train the next generation of the STEM workforce.